Mathematical Sciences Scientific Computing Research Environments

The Department of Mathematics at Brown University will purchase computer equipment which will be dedicated to the support of research in mathematics. The equipment will be used for several areas of mathematics, including number theory, problems in the calculus of variations, harmonic analysis, and partial differential equations.